An Online STEM Career Exploration and Readiness Environment for Opportunity Youth

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

CAST, the University of Massachusetts-Amherst, and YouthBuild USA aim to create a web-based STEM Career Exploration and Readiness Environment (CEE-STEM). This will support opportunities for youth ages 16-24 who are neither in school nor are working, in rebuilding engagement in STEM learning and developing STEM skills and capacities relevant to diverse postsecondary education/training and employment pathways. The program will provide opportunity youth with a personalized and portable tool to explore STEM careers, demonstrate their STEM learning, reflect on STEM career interests, and take actions to move ahead with STEM career pathways of interest.

The proposed program addresses two critical and interrelated aspects of STEM learning for opportunity youth: the development of STEM foundational knowledge; and STEM engagement, readiness and career pathways. These aspects of STEM learning are addressed through an integrated program model that includes classroom STEM instruction; hands-on job training in career pathways including green construction, health care, and technology.